The Work Budget of Fault Birth within Accretionary Systems

Most boundaries of tectonic plates in the Earth contain complex networks of active faults. Better understanding of how geologic faults develop would lead to improved understanding of deformation at plate boundaries. This project explores the evolution of faults by investigating the work/energy budget of the fault system. A deforming fault system will produce or consume different types of energy including the work of uplifting parts of the Earth’s crust and the energy released by earthquakes as ground shaking. Understanding the complete work budget can help predict new fault development. For example, new faults will develop when the energy savings of having the new fault within the system is greater than the energy cost of creating the new fault surface. This study examines the birth of faults within 1) theoretical, 2) analog table top experiments and 3) natural accretionary wedges in the Earth. Accretionary wedges develop at subduction zone plate boundaries where sediments are scraped off of the down-going oceanic plate. The scraped off sediments accumulate within an accretionary wedge, such as found off the coast of Oregon and Chile. Accretionary wedges are well-suited for the study of fault growth because new faults develop at the front of the system within young material that has never before been faulted. At other types of plate boundaries, such as the San Andreas Fault, the rocks are millions of years old and the active fault system is influenced by previous deformation of the rocks. The study uses numerical models to explore the work budget within accretionary wedges of a variety of scales. Models will test theoretical formulations for accretionary wedge growth, simulate table-top sandbox experiments performed, and simulate the Nankai trough accretionary wedge off Japan, for which a wealth of data is available from recent and on-going investigations.

The results of the study will refine the understanding of the fault life-cycle by revealing the energy required to both grow new faults in the Earth’s crust and reactivate old faults. While the project focuses on accretionary wedges, because the material properties are relatively simple in these settings, the results should be applicable to fault growth within any tectonic plate boundary. Understanding how and when new faults grow will aid in efforts to predict fault behavior and prepare for earthquake events along active fault systems. Furthermore, the numerical simulation of the Nankai accretionary system may yield insights the future behavior of that fault zone, which has generated strong earthquakes and devastating tsunamis in the past. An outreach component of this proposal will promote the use of table-top sandbox experiments within middle and high school classrooms. The deformational sandbox experiments help bring plate tectonics to life for students and the hands-on and visual nature of the activity inspires students to investigate earth science processes.